Conference Proposal: Wasatch Topology Conference, August 2014

This award supports travel for participants in the semi-annual Wasatch Topology Conference series, held in the winter and summer in the years 2014-2016 at Park City, Utah and Salt Lake City, Utah. The Wasatch Topology conference is focused on topology and geometry, including interactions with ergodic theory and dynamical systems. Each conference presents the work of eight speakers to an audience of primarily local research mathematicians and graduate students. Funds from this award also support the participation of non-local mathematicians.

The Wasatch Topology Conference allows mathematicians from around the United States the opportunity to gather and share their results with a larger audience of experts and junior researchers. Research opportunities will be created through interactions among the conference participants.

The current website for the Wasatch Topology Conference is

http://www.math.utah.edu/wtc/